Columbia College Site Wide Area Networking

Columbia College will use this grant to connect three of it's remote sites to the Internet. These include campus sites at Aurora, CO, Lake Ozarks, MO and Salt Lake City, UT. Columbia College is made up of twenty-one remote educational sites. Six of these sites are currently connected to the Internet. This grant will help three more sites connect. The college sites needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.